U.S.-Netherlands Cooperative Research on the Comparison of Meiotic Chromosome Metabolism in Rats and Yeast

This award supports Professor Nancy Kleckner of Harvard College and her graduate student, Ruth Padmore, M.D., to collaborate in molecular biology research with Professor Christa Heyting and others of the Department of Genetics of the Agricultural University of Wageningen, The Netherlands. Both of these laboratories are interested in understanding the mechanisms of and relationships between chromosome pairing and recombination during meiosis. However the two laboratories have used very different approaches and very different organisms for their analysis, yeast and rats. The overall scientific goal of the collaboration is a comparative analysis of the processes of interest in the two organisms. The complementary skills of the two research groups in yeast molecular genetics and mammalian cell biology and cytogenetics should accelerate progress in both laboratories. Meiosis is essential for sexual reproduction. One of the most important aspects of meiosis is the pairing of and recombination between homologous chromosomes. The general goal of this collaboration is a functional comparison of these processes in yeast and higher eukaryotes. Most work on the genetics of meiosis has been done with yeast, while most work on the cytology of meiosis is done with mammals. It is important but difficult to relate the two lines of research.